School District Capacity to Support the Mathematics Standards in Secondary Classrooms

The proposed study will examine the relationship between the depth of implementation of the mathematics standards in high school classrooms and the cognitive capacity of the local implementers. Cognitive capacity is defined as depth of knowledge and beliefs in the organization about reforms and strategic use of knowledge and beliefs to obtain important organizational resources that teachers and others in the system need to fully implement standards. Qualitative and quantitative measures will be used to collect data in a comparative case study design of 17-20 school districts in Colorado.